Lipid Phase Transitions and Cuticular Permeability

9317471 Gibbs Epicuticlar lipids serve as the primary passive barrier to water loss in insects and other terrestrial arthropods. The waterproofing abilities of cuticular lipids are thought to depend upon their biophysical properties. According to this hypothesis, lipid melting results in a rapid increase in cuticular permeability, with subsequent death due to dehydration. This idea has played an important role in the development of insect physiology, but experimental support remains sketchy. Recent technological advances have made it possible to test the lipid phase transition hypothesis in a rigorous manner. Sensitive water vapor sensors have allowed the accurate measurement of cuticular water fluxes, and detailed biophysical studies of small quantities of cuticular lipids can be performed using Fourier transform infrared spectroscopy (FTIR). The PIs will use FTIR to examine the effects of specific changes in lipid structure upon lipid physical properties. The permeability of model cuticle preparations, with lipids of known physical properties, will be examined as a function of temperature. The results of these experiments will be compared to those of similar studies using isolated cuticle preparations. The information gained will provide: (1) better understanding of the function of the cuticular lipid waterproofing layer; and (2) the foundation for physiological, ecological, and evolutionary studies of cuticular lipids and water balance. ***